A Study of Riemann Surface via Weil-Peterson Geometry of Teichmuller Spaces

Abstract

Award: DMS-0071862
Principal Investigator: Sumio Yamada

The two main subjects of the proposed research are Teichmueller
spaces of compact Riemann surfaces of genus greater than one and
the universal Teichmueller space, which can be identified with
the diffeomorphism group of the circle. There is a natural
Riemannian metric on both classical and universal Teichmueller
spaces, called the Weil-Petersson metric. Although those spaces
are not symmetric spaces, and there are no classical Lie groups
acting on them isometrically (unlike the hyperbolic spaces with
the special linear group), one notes that on the classical
Teichmueller spaces the mapping class group of the Riemann
surfaces acts isometrically, and that on the universal
Teichmueller space the diffeomorphism group of the circle acts
isometrically. These group actions on Teichmueller spaces can be
utilized to construct flat bundles over various manifolds with
its fibers being copies of Teichmueller spaces, which leads to
the questions of strong/super rigidity. It is in this context
that the investigator intends to use the Weil-Petersson geometry
of Teichmueller spaces.

The subject of Riemann surfaces has been one of the central
themes of modern mathematics over the last two centuries. In
recent years, it has received renewed attention due to the
interest created by the so-called super-string theory, with which
physicists hope to construct the grand unifying theory (GMT) of
graviation and quantum physics. The Teichmueller space, which is
the subject of this investigation, plays an important role since
it is known to parametrizes the "shapes of the string."
Interactions between mathematics and theoretical physics have
proved to be fruitful for both sides, and it is the
investigator's belief that the proposed research may offer some
new way of understanding the outstanding issues in the relevant
scientific fields.